Mathematical Sciences: Compact Hausdorff Spaces and Set-Theoretic Topology

Over the last three decades there has been a revolution in general topology and the theory of Boolean algebras, brought about by powerful new techniques in set theory, including the method of forcing pioneered by Paul J. Cohen, and by deep studies in the structure of inner models of set theory and large cardinals. At the same time, there has been striking progress in the theory of compact Hausdorff spaces, and it is not always easy to see in advance whether extra set-theoretic assumptions are required. The investigator intends to continue his research on compact Hausdorff spaces, including the application of special set-theoretic tools. Other classes of spaces receiving attention will be the related classes of countably compact and sequentially compact spaces, Moore spaces, non-metrizable manifolds, Frechet-Urysohn topological groups and topological vector spaces, countably metacompact spaces, and weak and weak* compact subsets of Banach spaces. Finite group actions on normal spaces will also receive some attention. General topology is more of a foundational subject than the rest of topology, concerning itself with very abstract spaces and with the impact on topology of the adoption of variants of the axioms of set theory. Although analogies to familiar objects of geometry are valuable heuristics, the plastic, intuitive kind of geometry involving low-dimensional manifolds is a far cry from the study of subsets of a Banach space, the latter being more closely related to classical analysis than to geometry, in spite of the geometric terminology employed. One major result of general topology in which Nyikos was involved a decade ago was the discovery that a famous unproved conjecture concerning Moore spaces was actually independent of the usual basic axioms of set theory. Moreover, it was shown to be inconsistent with the Cantor Continuum Hypothesis, a far more familiar proposition that most working mathematicians would be likely to choose if they had to make a choice. This result suggests the flavor of the best general topology.